RUI: Search for a Stochastic Background of Gravitational Waves Using the Normal Modes of the Earth (Physics)

Background radiations which bathe the Universe provide important clues to the history of the Universe and can even influence its evolution. A search for a background of gravitational radiation in the mHz frequency range by observing the normal modes of the earth shall be undertaken. The approximately two hundred station-years of data collected by the Project IDA global network of seismometers will be analyzed to look for any residual excitations of the quadrupole modes of the earth. In addition a calculation of the level of excitations of these modes by known terrestrial sources will facilitate the evaluation of the ultimate usefulness of the earth as a gravitational wave detector.